Substituent and Solvent Effects on Proton Transfer Reactions

The investigator proposes to assess the effects of substituent and solvent variations on proton transfer reactions of organic molecules. For appropriately substituted amines and carboxylic acids, he will conduct proton transfer equilibrium measurements in selected solvents. Recently developed substituent parameters (resonance, field/inductive and polarizability) will be used to identify, quantify and analyze substituent effects on the basicities and acidities of these molecules in various solvents. Comparison with reported gas phase basicities and acidities will allow solvent attenuation factors (SAF) to be determined. The SAF values will provide detailed insight into solvation effects on each species involved in the proton transfer reactions. Attention will then be focused upon the structurally more complicated alpha-amino acids which possess both amino and carboxyl functional groups in a single molecule. Substituent and medium effects on the acidity and basicity of substituted alpha-amino acids will then be evaluated in terms of the information gained regarding substituent and medium effects on the basicity of substituted amines and the acidity of substituted carboxylic acids.